NSFnet Connections

9521756 Cobb The Southern College of Optometry requests support from NSF for a connection to the Internet through the SURAnet regional network. SURAnet is the regional network located in the state of Tennessee that will provide operations and network information services. It will provide the Southern College of Optometry with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The college needs the Internet connection to be able to access information resources throughout the state, the nation nd the world. The connection will benefit the students, faculty and staff of the Southern College of Optometry.